Large Scale Nonlinear Optimization

This research project is concerned with algorithms for minimizing smooth nonlinear functions of many variables. The research has both practical and theoretical components, and its ultimate goal is the development of new general-purpose software. The project has three components. (1) The incorporation of variable metric information in algorithms for large constrained problems will be considered. The initial effort will concentrate on the use of limited memory methods for bound constrained problems, but novel techniques useful for more general constraints will also be developed. (2) A complete convergence theory for nonlinear conjugate gradient methods will be derived. The new results will fill important gaps in our present understanding of nonlinear gradient methods. The new methods suggested by the theory will be tested on large scale problems, in particular, in the variational assimilation of metereological data. (3) New full-rank automatic scaling techniques for optimization methods will be developed. The idea is to scale the columns of a factorization of the Hessian approximation. The scaling techniques will result in dramatic improvement in the performance of quasi- Newton methods, especially for ill-conditions problems.